Bubble Dynamics and Bubbly Liquids

It is proposed to study the nonlinear dynamics of bubbles containing gas and a small amount of vapor. This study is an extension of the PI's past research on the modelling of single bubble dynamics and bubbly liquids. The purpose of the present research is to extend the model and apply them tc specific technological problems. The proposed work has a significant impact on many industrial applications such as bubble columns used for hydrocarbon oxidation reactions, vapor production systems, heat exchangers, and boiling water nuclear reactors.